Experimental Tests of Nuclear Models

Research in nuclear structure will be carried out. Most of the near term experimental effort will be done at Florida State University's Nuclear Structure Lab, with some planned work to be done at Livermore and Berkeley using the GAMMASPHERE detector array. Permanent octupole deformation, intrinsic and rotational excitations, and superdeformation in heavy nuclei will be studied. A search for hyperdeformation in lighter nuclei will also be carried out. The techniques of particle and gamma counting will be used as well as particle- gamma coincidence counting. A review of all data for odd-A and odd-odd rare earth and actinide nuclei will be conducted, with emphasis on systematics. The adequacy of current microscopic theory as it applies to such systems will be evaluated.